Visiting Scientist Housing at the Bodega Marine Laboratory Reserve

Bodega Marine Laboratory (associated with the University of California, Davis) is located on the north coast of California, and facilitates study of the marine shelf, rocky and sandy shallow-subtidal and intertidal zones, and diverse land-margin habitats. The lab hosts resident and visiting researchers as well as graduate and undergraduate training. Resident staff at the lab has recently expanded to include staff researchers and a data manager for their environmental database. A plan for expanding the lab's physical plant has been approved by the University of California system. Research emphasis will expand in population biology, cellular and organismic biology, and aquaculture and fisheries. Lab Director James Clegg proposes construction of a housing duplex for visiting faculty families to increase the lab's use by investigators at other institutions. Research at the Bodega Marine Lab is diverse and of high quality. Expanding the housing facilities at the Lab will attract more and better scholars and students to this unique setting. The proposed construction will benefit research and education across the spectrum of marine biological disciplines.